1992 International Cloud Physics Conference (Montreal, Canada) and the 1992 Workshops on Numerical Cloud Modeling and Cloud Microphysics and Applications to Global Change

This grant will provide travel funds for scientists to attend the 1992 International Cloud Physics Conference. In addition, the Third International Cloud Modeling Workshop and the Cloud Microphysics and Application to Global Change Workshop will be supported.